ECS/EPSCoR, NSF Grantees Conference on Electronics, Photonics and Device Technologies, July 9-10, 2001, Univ. of Arkansas, Fayetteville, Ark.

The objective of this proposal is to request funds to organize ECS-EPSCoR, NSF
Grantees Conference on Electronics, Photonics and Device Technologies. The
conference will be conducted during summer of 2001 at the University of Arkansas,
Fayetteville, Arkansas. Arkansas is an EPSCoR state where significant progress has been
demonstrated in the conference related topics through major NSF sponsored programs.

Another important objective is to establish an interactive platform of leading researchers
from the states with leading as well as evolving research programs in the areas related to
the conference. The meeting will invite grantees from EPSCoR states (over 60% out of
the total number) and from non-EPSCoR states. This will be a singular opportunity to
generate and discuss new academic concepts, research and education directions by
establishing teams of leading researchers. The conference will provide a basis for
discussing recent research findings as well as sharing first-hand-teaching experiences in
interdisciplinary education across cultural, age and gender boundaries.

The choices of conference venue is conducive for the subjects as well as inter and intra
state teaming due to presence of outstanding research and education programs in the
related areas on this campus. For example, this campus houses various leading NSF
funded laboratories, centers, programs and projects including the Arkansas Center for
Electronic-Photonic Materials Innovation (ACEMI), Materials Research Science and
Engineering Center (MRSEC), Distributed seed Program at AR-NB-OK for Science and
Engineering Research Center (SERC) for Durable Nano and Micro System, femtosecond
laser microvias drilling at Materials and Manufacturing Research Laboratories (MRL),
Integrative Graduate Education and Research Training (IGERT) in Microelectronics and
Photonics, and MEMS packaging at High Density Electronics Center (HiDEC).

The conference will result in promoting interaction among scientists and engineers
leading to germination of new ideas and themes, team formation, new proposal
submissions, student involvement and exchange, proceedings of extended abstracts, and
generation of more fiscal and intellectual resources at EPSCoR states, K-12 and school
teacher outreach, more technology transfer. The outcome of the conference will be
disseminated through proceedings and related material on internet, recordable media, and
at various related technical conferences.